Engineering Research Equipment Grant: Pulsed Dye Laser Upgrade for Gas-Solid and Turbulent Flame Diagnostics

Narrative: A pulsed laser system presently available at Cornell (Quanta-Ray DCR-2) is upgraded to include a third harmonic generator, a dye oscillator/amplifier, and a doubling crystal. The resulting pulses of tunable coherent light enable measurements of (1) velocities in dense gas-solid flows and (2) radical species concentrations in the reaction zone of premixed turbulent flames. In dense gas-solid flows, the pulsed dye laser enables particle and gas velocity measurements using a fiber-optic time-of-flight anemometer probe. At the probe tip, laser-induced- phosphorescence is detected to infer velocity of a tracer gas or specially coated particles. This new diagnostic will provide detailed information on gas-solid flow patterns in fluidized beds. In premixed turbulent flame combustion, fluorescence of radical species induced by the tunable dye laser provides unique data on the structure of strained flamelets.